Modernization of the UCSD General-Use NMR Facilities

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at University of California at San Diego to acquire a 400 MHz nuclear magnetic resonance (NMR) spectrometer. This equipment will enhance research in a number of areas involving projects in synthetic organic chemistry, organometallic chemistry, inorganic and organic chemistry, molecular recognition, natural-products chemistry, peptide chemistry, supramolecular chemistry, environmental chemistry, and prebiotic chemistry. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.